An International Conference on Advances in Coal and Mineral Processing using Flotation on December 3 - 8, 1989 at the Sheraton Palm Resort, Palm Coast, FL

Flotation remains one of the most important separation processes in the mineral industry. This symposium will provide an opportune time for practitioners and researchers to take stock of the changes forced by the turbulent economic and regulatory environment of the past two decades while looking forward to the demands of the next century.